Manipulating the hsp70 Promoter for Studies of Drosophila Prohormone Genes

This is a Research Opportunities for Women Career Advancement Award. The PI will use this award to construct innovative hsp70 promoters that will allow her to pursue her main interest, regulation and function of sex specific genes.